Research Experiences for Undergraduates in Chemistry at the University of Kentucky

Dr. Joseph Wilson and other members of the Chemistry Department at theUniversity of Kentucky are being supported to continue a Research Experiences for Undergraduates (REU) site in chemistry. For the period 1996-98, ten undergraduate students will spend ten weeks each summer actively engaged in basic research projects drawn from the traditional areas of chemistry and biochemistry. In addition to research group meetings, activities provide information on career possibilities, on current major research issues, and on the development of effective scientific communication skills. Participants are drawn from Kentucky and neighboring states.